Design and Rapid Prototyping of Customized Micro and Macro Compliant Mechanisms

This project focuses on design and fabrication for a novel class of mechanical system known as compliant mechanisms. Compliant devices replace elements traditionally assembled using joints and springs with compliant flexible members that use elastic deformations to transmit motions and forces. This allows the research to concentrate more on representation, translation, and interface issues of design and fabrication, and less on issues such as assemble and manufacturability. The domain of compliant mechanisms allows design and optimization to be performed on devices at both the macro and micro level (e.g., SFF and MEMS-type fabrication processes, respectively), and so will afford a unique opportunity to study the clean separation of design and fabrication analogous to the VLSI paradigm. This research targets three primary areas of compliant mechanism design and fabrication. Fundamental to this study is the optimal synthesis of compliant devices, both macro and micro. This includes the design and analysis of 3-D structures and the nonlinearities associated with large deformations. The ability to form more complex objects based on a library of standardized parametric components will also be explored. As the processes are generally not the same, the issue of designing and refining translation tools to move between representations is a critical component in this research. The choice of intermediate representations will be critically examined, and the appropriate translation tools will be developed. The goal here will be to push towards intermediate formats that are suitable to multiple fabrication processes, at both the micro and macro scales. Finally, the ability to test and refine designs for micro structures by the use of macro prototypes fabricated from the same initial model will be developed, and its utility in the design of MEMS devices will be carefully examined.